Elementary Particle Physics Using High Energy Colliders

The University of Washington is involved in colliding-beam experiments at Fermilab and the Large Hadron Collider, which will permit exploration and study the mass-energy region up to 1 TeV. This will significantly extend the understanding of the standard model and open an ever-increasing window to physics beyond the standard model. During this proposal period, fabrication work will be completed for the DO Run2b Silicon tracker, and ATLAS Muon System forward chambers will be installed and commissioned. After several years of intense hardware fabrication the group is now ready to focus on the rich physics opportunities available in the DO data and prepare for LHC physics analysis. The group will concentrate on searches for Higgs bosons, SUSY particles, and Mini Black Holes as well as studies of single top quark production. The unique discovery potential of the DO and ATLAS experiments could well lead to a conceptual breakthrough in understanding the nature of matter and the fundamental interactions. The University of Washington program provides a unique opportunity for undergraduate training, and continues to its long tradition of involving undergraduates in all aspects of its research work, by having them spend summers at Fermilab and CERN working with faculty and graduate students.